Travel to Attend: International Conference on Vibration Problems in Engineering; Xi'an, China; June 17-20, 1986

This award provides travel support for an investigator to participate in an important international meeting, the International Conference on Vibration Problems in Engineering, in Xi'an, China. The opportunities for technical exchange are very good.